Natural Thermoluminescence Levels in Antarctic Meteorites and Related Studies

This award, which is jointly funded with NASA, supports the systematic measurement of the natural thermoluminescence levels in suitable Antarctic meteorites. Since natural thermoluminescence is a function of radiation and thermal history, its measurement enables partial assessment of questions relating to the origin of the meteorites and how to choose significant meteorites for detailed study. Some of the meteorites to be studied have experienced minimal exposure to cosmic rays (those that are undersaturated with 26Al) and thus are extremely interesting. This project is designed to help clarify natural thermoluminescence production systematics and to improve interpretation of the results of geochemical analyses of meteorites.